Research Initiation Awards: Process Planning for Coordinate Measuring Machine (CMM)-Based Dimensional Inspection

This research project is aimed at developing a knowledge- based process planning system for dimensional inspection of discrete-part products using coordinate measuring machines in a computer-integrated manufacturing environment. The project is structured to rigorously investigate critical issues in such dimensional inspection, including evaluation of software algorithms, evaluation of uncertainties in measurement results, design of inspection strategies, capturing of dimensional inspection knowledge in computer systems, and generation of standard inspection programs. The system uses product definition data, dimensional inspection expertise, and knowledge-based expert systems to generate process plans for dimensional inspection applications. The system also generates part inspection programs to be executed on coordinate measurement machines, which represent an emerging automated dimensional inspection technology widely accepted by industry. The research is a pragmatic problem and contains a wealth of research problems that require innovative ideas. Major improvements in product quality, inspection throughput and flexibility for moderate to low volume applications are anticipated. The research focus is on seamless flow of product and production information. The research results will be applicable in establishing a critical link between the islands of automation of design and inspection. It may also advance the state of the art of automated dimensional inspection technology.